Acquisition of a 400 MHz NMR Spectrometer for the University of Tennessee at Chattanooga

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at the University of Tennessee in Chattanooga will acquire a 400 MHz nuclear magnetic resonance (NMR) Spectrometer. This equipment will enable researchers to carry out studies on a) organometallic catalysis of stereoselective organic reactions; b) multinuclear analysis of heavy metal thioether complexes; c) reduction of organic compounds by catalytic transfer hydrogenation using Raney catalysts and hydrogen donors; d) the reactions mechanism of pyridinium chlorochromate oxidation of bis-homoallylic tertiary alcohols; and e) the effect of inhibitors on pyrimidine de novo biosynthetic pathway enzymes

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in organometallic synthesis, natural products chemistry, biochemistry, complexation of heavy metals and physical organic chemistry.